The Mechanics of Delamination of Polymer Coated Surfaces Under Contact Stresses

An experimental and numerical/analytical study will be made of the delamination mechanics of polymer coated systems under contact stresses. Thin polymer coatings are used in many situations, e.g., in electronic and optical applications. An indentation-induced debonding test will be used to determine the adhesive shear strength of polymer coatings. Scanning laser acoustic microscope and a modified microhardness tester will be used to measure interfacial debonding characteristics in opaque systems. Contact mechanics models (analytical and finite element) will be developed.